1990 Theoretical Advanced Study Institute in Elementary Particle Physics; Boulder, Colorado; June 4-29, 1990

The 1990 Theoretical Advanced Study Institute will be held June 4-29, 1990 at the University of Colorado in Boulder. This summer school for advanced graduate students in theoretical elementary particle physics will focus on testing the standard model of the fundamental forces and particles. Lectures will be given by leading physicists on a variety of topics both within and somewhat beyond the standard model. The summer school will make a very important contribution to the advanced education of graduate students from throughout the United States. In view of currently emerging data which sensitively probes the standard model, the topic of the school is very timely.